Amortized Bayesian Inference via Exact ScoreGuided Diffusion for PDE-Constrained Inverse Problems

Many critical decisions in science and engineering depend on inferring hidden physical properties from limited, noisy measurements, such as estimating underground water flow from surface observations or characterizing tissue properties from medical scans. Current computational methods for this task are often prohibitively slow, sometimes requiring weeks of supercomputer time, because they must repeatedly simulate the underlying physics to test different possibilities. This project develops a new mathematical and computational framework that performs these calculations in a single fast step, without repeated simulation, while still providing reliable estimates of uncertainty. The approach combines rigorous mathematical theory with modern artificial intelligence tools, providing a foundation for trustworthy, real time decision making in areas such as water resource management, healthcare, and infrastructure monitoring. By establishing provable mathematical guarantees for these artificial intelligence based methods, the project advances national priorities in trustworthy and reliable artificial intelligence. The project also trains graduate and undergraduate students at the intersection of applied mathematics and artificial intelligence, develops new course materials, and organizes workshops that broaden participation in scientific machine learning, including recruitment of students from groups underrepresented in science and engineering.

This project will develop and analyze a mathematically rigorous framework for amortized Bayesian inference in partial differential equation constrained inverse problems, using exact posterior scores derived from Gaussian mixture model approximations to eliminate the need for neural score learning. The research pursues three coordinated goals. First, it will establish convergence theory and error bounds relating the accuracy of the Gaussian mixture approximation, the propagation of score errors through generative sampling, and the generalization capacity of the resulting neural transport operator. Second, it will develop manifold aware diffusion formulations, including denoiser based projection, latent diffusion, and tangent space mixture models, that preserve physical constraints such as positivity and conservation laws in generated samples. Third, it will design scalable neural architectures, including multistage transport, physics informed loss functions, and mixture of experts models, to address high dimensional and multimodal posterior distributions. The framework will be validated on inverse problems in subsurface flow, nonlinear elasticity, and seismic inversion over a three year period, and all software will be released openly to support adoption across computational science and machine learning communities.